Problem Solving and Hypermedia Instructional Laboratory

Much of current pedagogy in computer science instruction is static and interactive. Books use illustrations, charts, and diagrams - nondynamic, still shots. Overheads used in class suffer from the same problem. Good discussions in the classroom are appropriately interactive for at least some students but labor with the limitations of language. Films or videos, on the other hand, are dynamic but not usually interactive. In part inspired by ideas generated by Project Kaleidoscope in Washington, DC, the goal of this project is the development of a laboratory for graphical/interactive computer science instruction and support materials for the classroom. Utilizing special authoring software, courseware willl be developed for the laboratory for use in courses in problem solving, algorithms, data structures, theory of computation, computer organization, and others.